International: Planning Grant: U.S.-Brazil Cooperative Research on Active-Mixing Controls for Enhanced Oscillating Combustion

This award funds a planning visit to Brazil for Dr. Derek Dunn-Rankin of the University of California-Irvine to meet with Dr. Joao De Carvalho of the Universidade Estadual Paulista (UNESP) and to visit the Instituto Nacional de Pesquisas Espaciais (INPE) to develop a research plan to experimentally analyze thermoacoustic oscillations in confined combustion systems. A better understanding of such systems could lead to improved heat transfer and lower pollutant levels. The detailed experimental plan that will result from this planning visit could form the basis for a future U.S.-Brazil Cooperative Research proposal.